Robert Morris University School of Engineering, Mathematics, and Science (SEMS) S-STEM Scholar Program

This program is supporting 21 science, mathematics and engineering student scholars for each of their four years at the university. Program highlights include a mathematics and science "boot camp," additional educational support and strengthening of ties between Robert Morris University(RMU) and employers. The boot camp precedes the start of the fall semester of students' freshman year, helping scholars transition from high-school to university, preparing them to handle challenging courses. Educational support includes a living-learning environment, emphasis on effective study habits, time management and involvement in campus life. Scholars have extensive access to the Career Center. The program is also supporting academic success through seminars, field trips, internships, research and cultural, outreach and social events. This program is helping the university expand relationships with employers. RMU adds at least three new employers each year to its partnerships, providing internships, research projects, real-world problems, tours and job opportunities. The program is increasing enrollment, recruitment, and retention of high-caliber students from all groups including first-generation students, minorities and women.